Periodically and Random Driven Dynamics in Nonlinear Optical Fibers

Dispersion management is the technique of concatenating two or
more optical fibers with different dispersion parameters to form a system
with periodically varying dispersion. This technique makes it is
possible to have both high local and low average dispersion in
the system. The high local dispersion reduces four-wave mixing
(an effect that distorts signals and produces intersymbol
interference in transmissions), while the low average dispersion
reduces the net cumulative effects of dispersion over long
optical fiber spans. Overall, therefore, dispersion management
reduces effects which are detrimental to the performance of
optical-fiber based communication systems, thus allowing transmission
capacity to be increased. In mathematical terms, what must be
studied are nonlinear wave equations with rapidly varying
coefficients. The theory of these equations is currently not well
understood and will be advanced with support from this award.

The theme of this research is the development of new mathematical
techniques with which to model the propagation of optical pulses
in nonlinear optical fibers. It is important to properly
understand the dynamics of such pulses in optical communication
and information processing systems so that new techniques can be
devised to increase their overall capacity. In particular, new
mathematical methods for dealing with dispersion management
will be investigated, in order to predict and improve the performance
of such systems.